Partial Travel Support for ICTACEM 2001 in INDIA

Partial Travel Grant for ICTACEM December 2001,
IIT Kharagpur , India

100 word abstract by Gautam Dasgupta, Columbia University

After a productive International Conference on Theoretical, Applied,
Computational and Experimental Mechanics efforts are made to invite US researchers from Civil,
Mechanical, Aerospace, Bio and Environmental Engineering at the ICTACEM
12/01 and post conference symposia in IIT Madras and Delhi. The focus is
on new technology, mechanics education/research and future joint NSF
proposals with Indian researchers. Only 50% air fare is requested for three female and seven male
participants: four chair professors, two full professors, two associateprofessors, and two PhD students.
A modest sum to disseminate proceedings (printed/CD
and free web download) is included.